WECOMA Emergency Generator

Prop #: 0308846
Institution: Oregon State University (OSU)
PI: Fred Jones

Oregon State University operates the R/V WECOMA as a general-purpose oceanographic vessel in support of National Science Foundation (NSF) and other federal agency sponsored programs. The vessel is owned by NSF and operated through a five hear Cooperative Agreement. The ship is scheduled for 223 operational days in 2003 of which 130 support NSF programs. The proposal requests funds to install a replacement emergency electrical generator on board the vessel. The installation will require structural modifications to the vessel. The installation will be done during the winter shipyard period in accordance with 46 DFR 28.375 for ship's service generators. The new system will provide power for steering, bilge pumps, running lights, navigation and communication equipment, fire protection systems and emergency lighting during a main power outage.

The proposal requests funds for an architectural design, structural modifications, and installation of an automatic transfer switch and related electrical panel, installation of a fire suppression system and alarms and modifications to the ships electrical system. The NSF inspection team inspected the vessel in March 2002 and recommended the installation of the larger emergency generator and associated modifications.
***